Young Scholar Program for High Ability Secondary School Students with Orientation Toward Chemical Engineering

Texas A&M University will initiate a 4-week, residential, Young Scholars project in Engineering for 18 students in grades 11,12. Students engage in a 4-week experience in science and engineering on the campus of Texas A&M, with special orientation toward Chemical Engineering. Approximately equal numbers of males/females and minorities/non-minorities are included. The program includes research projects under the direction of engineering faculty as well as classroom instruction and discussions in communications skills, research techniques, engineering problem solving, creativity, ethics, using spreadsheets on PC's to solve problems and career orientation. Campus field trips through scientific facilities and plant trips through industrial facilities are included. Written and oral reports will be required on the research projects and plant trips. Students from small and rural high schools are targeted. Follow-up includes presentations to high school or peer groups.